International Travel Award: The 2nd Pacific Basin Conference on Adsorption Science and Technology

Abstract

Proposal number: 0073355
Proposal type: Investigator Initiated for International
Group Travel
Principal investigator: Mietek Jaroniec
Affiliation: Kent State University

International Travel Award: The 2nd Pacific Basin Conference on Adsorption Science and Technology

This award supports partially the participation by 16 American researchers in the 2nd Pacific Basin Conference on Adsorption Science and Technology, to be held in Brisbane, Australia, from May 14-8, 2000. This conference is the successor to the first such conference, held in Japan three years ago. It brings together about 200 researchers from Asia and the US, as well as Europe. Both academic and industrial researchers will participate in sessions on materials, characterization, simulation, theoretical models, equilibrium, kinetics, applications, and processes.

Adsorption is a key phenomenon in many separation and catalytic processes as well as in nature, and the current research activity is dynamic, stimulated by new developments in materials synthesis, molecular modeling, and specific applications. Much of the important new work is being done abroad, especially in Japan, so it is vital that U.S. researchers maintain contact and collaboration with their foreign counterparts. This conference provides an opportunity to promote such contact.